Engineering and Operations Assistance for Scientific Payloads Flown on the WB-57 Aircraft

These funds provide engineering and operations assistance for scientific payloads flown on the WB-57 aircraft operated by the Lyndon B. Johnson Space Center.